Mathematical Sciences: Statistics of Spatial Data

This reseach into statistics of spatial data has several aims, including: (1) to investigate spatial prediction and mapping, (2) to investigate recursive parameter estimation in spatial models, (3) to estimate a stationary distribution from irregularly located spatial data, (4) to find the weakest hypotheses under which inference can be made at a different scale than that of the data, and (5) to develop spatial experimental designs. This research responds to needs in the geosciences for new statistical procedures as are required to address questions concerning acid rain, water and air pollution, oil and gas deposits from the large volumes of relevant data now being collected. Statistical scientists are interested in developing statistical procedures for studying these important problems and this research promises to contribute to this effort.